Strategic Planning in an Uncertain World: From Theory to Prototype

This Research Initiation Award will help Dr. Abramson develop his ideas on probabilistic state-space planning for robotic applications. Traditional AI planning assumes that agents are in known states and have access to easily characterized inputs. Robotic planners must deal with incomplete and uncertain information about unpredictable environments. Dr. Abramson intends to develop probabilistic planning methods for use in assembly plants and other robotic domains.